Engineering and Analysis of Pressure Sensitive Antibodies

9503227 Yarmush This project is on research to study the use of hydrostatic pressure as a mild and effective means of dissociating antigen-antibody complexes, thus providing a rational basis for the design of strategies which utilize this pressure sensitivity in separation and/or sensing applications. The proposed studies include three aspects: (1) fundamental solution-phase thermodynamic and kinetic characterization of the pressure-induced phenomena for a panel of antibodies using high pressure fluorescence spectroscopy; (2) protein engineering studies directed at understanding the molecular mechanisms mediating pressure effects; and (3) thermodynamic, kinetic and pressure cycling studies with immobilized antibodies to develop operational strategies for practical pressure elution on a large scale. In addition to providing the rational framework for the development of strategies for engineering and utilizing pressure sensitive antibodies, this research could also result in advances in the fundamental understanding of pressure effects on protein structure and function. ***